Minority Graduate Research Honorable Mention - Reyna Favis

This special award will give Ph.D. student Reyna Favis additional flexibility in pursuing her graduate studies and research initiation in developmental genetics. This award will strengthen minority research participation in this area.